Development and Application of Fiber Optic Sensors for Improved Measurement of pCO2 in Sea Water

This ocean sciences instrumentation development project will design and build fiber optic sensors for continuous sensitive measurements of pCO2 in sea water. CO2 plays a major role in the biogeochemical cycle. Studying these complicated processes require precise quantitative measurements of small changes in CO2 in order to understand the extent of the ocean's contribution to the global CO2 cycle. The advent of optical fibers within the past decade is producing an impact on chemical sensor technology. Optical sensors consist of reagents attached to the distal tip of an optical fiber that change their optical properties upon exposure to a specific analyte. These sensors are small (approximately 200 microns), require no direct electrical connection between the sample and sensor, and are free from electromagnetic interference. These characteristics make optical sensors ideal for measurements at sea. This project aims to develop deployable instrumentation based on optical sensors for continuous sensitive pCO2 measurements in seawater. The project is divided into three parts. 1) Sensor/indicator development will be conducted at Tufts. Novel indicating schemes with enhanced sensitivity and internal calibration capability will be examined. 2) Laboratory-based measurements will be conducted using both research and field portable instruments to verify the use of these indicating schemes for seawater pCO2 measurements. This aspect of the work will be a collaborative project with Tufts and Woods Hole Oceanographic Institution. 3) Shipboard measurements of sensors for field proofing will be conducted by Woods Hole/Monterey Bay Aquarium Research Institution personnel.